Wind-Generated Waves, Topographic Reflection, and Tidal Dissipation

Miles Several topics dealing with geophysical fluid dynamics considered to be basic to the physical understanding of important phenomena in both the ocean and the atmosphere will be studied using analytical methods. Of primary interest are the effect of gustiness and parameterization of surface roughness on win to wave energy transfer, non-linear effects of wave age on effective roughness, wave propagation in water of variable depth, internal vs. boundary layer damping for surface waves, and the dissipation of barotropic (surface) tidal energy through conversion to baroclinic (internal) tides.